Enhancing the Psychophysiology Component of Courses at All Levels of the Psychology Curriculum

Through this project, four Lafayette Instrument Minigraph computer interfaces and four P-60 Pentium IBM-compatible computer systems linked by a Pentium/66 network server are purchased in order to enhance the laboratory component of the curriculum of the Psychology Department. The most important improvements are for the laboratory course, Physiological Psychology, in which the equipment can be used regularly during weekly laboratory sessions that are limited to 12 students per session. These computers permit hands-on experience with state-of-the-art technology for laboratory exercises and provide students with expertise in computer-based research technology in psychophysiology. The computers also enhance utilization of existing polygraphic equipment by permitting real-time analysis and automated data processing of physiological measures recorded in laboratory exercises. In addition, sophisticated data collection and analysis by senior students completing independent study projects is made possible. These improvements in the education of psychology majors better prepare them for research in graduate school.